Networking the Classroom and Microcomputer Laboratory to Enhance Undergraduate Training in Psychology

This project makes microcomputer technology a central part of the undergraduate experience in psychology. It establishes an interactive classroom and two computer laboratories. The interactive classroom is equipped with a microcomputer, a video recorder, and a multi-sync video projection system for effective in-class demonstrations of microcomputer applications. The statistics laboratory enables the conduct of laboratory assignments requiring data analysis and simulation, and the on line laboratory permits the on line control of experiments. The classroom and laboratory microcomputers are networked in order to provide the advantages of a mainframe system without the corresponding limitations. Undergraduates are involved in all phases of the use of microcomputer technology in research, data acquisition, on line experimental control, data retrieval, data analysis, bibliographic work, report writing, graph making, and simulation. Student proficiency in using microcomputers is a means to deeper understanding of basic psychological principals as well as an end in itself. The award will be matched by an equal sum from the grantee.